The 'CG to MP' Strategy for Animation, Packing, and Related Optimization Problems

The "computational geometry to mathematical programming" (CGtoMP) reduction strategy has three parts. 1) Formulate a task involving complex interactions between non-convex geometric objects as an optimization problem. 2) Develop algorithms of computational geometry that reduce the geometric problem to a non- geometric optimization problem. 3) Solve the optimization problem using techniques from mathematical programming: linear, quadratic, convex, and integer programming. Using the CGtoMP strategy, this project will develop theory, algorithms, and software directed towards several related application domains: layout and packing on isotropic materials, glass, metal, etc.; stereo-lithography; molecular modeling, computer vision, and curve/surface fitting; entertainment and scientific visualization; robust computational geometry. Accordingly, the work has the following specific goals. Packing and Animation: develop algorithms to pack and animate rotating and/or three dimensional objects. Geometric Conditioning: by solving an optimization problem, "condition" coordinates whose values are causing numerical/geometric inconsistencies and thereby achieve robust set operations on curved and/or multidimensional geometric objects. Realism in Animation/Visualization: formulate laws of motion as an optimization problem (such as Hamilton's "principle of least action") in a way that can be solved rapidly by a CGtoMP algorithm. Theory and Experiment: examine both theoretical complexity and practically achievable running times of packing and animation algorithms. Service to Research Community: organize available packing problems, make new industrial contacts, gather new data, and obtain the necessary permissions to make this set of problems available to the research community. Industry Involvement: attract money from industry to help fund application of algorithms to specific domains.